Future Scholars Program

This program provides financial and academic support for students at the upper-level sophomore, junior and senior level who possess the potential to graduate with a baccalaureate degree with majors in computer science, engineering, engineering technology, and mathematics. The program strives to attract underrepresented individuals into these disciplines. Academic support structures include close faculty advising, professional development events, and internships and career positions through an industrial advisory board.